MRI: Acquisition of EDS Microanalysis and Nanometer Pattern Generation Systems for Electron Microscopy Facilities at a Primarily Undergraduate Consortium

Technical Abstract

Pomona College will acquire new EDS microanalysis and nanometer pattern generation
systems to enhance the electron microscope facility at Pomona College. These
subsystems will be added to the college's field emission scanning electron microscope.
The EDS system consists of an X-ray detector, a pulse processor, and an analyzer used
for identification of elemental composition and mapping of specific elements with
submicron resolution. The nanometer pattern generation system will allow the design and
creation of arbitrary patterns in polymers with features smaller than 50 nm with
placement accuracy less than 5 nm. We will upgrade the stage controller and In-Lens
secondary electron detector as well. The primary research projects will include
nanostructure fabrication and characterization, combinatorial methods for materials
research and performance optimization, and the exceptional fossil deposits from the
period of the 'Cambrian Explosion'. In addition to this, faculty colleagues from across
the Claremont Colleges Consortium have expressed interest in adding these specific
capabilities for research programs in Biology, Chemistry, Engineering, Geology, and
Physics. We anticipate that curricular modifications of laboratory courses in Chemistry,
Geology, and Physics will result in approximately half of all undergraduates enrolled at
Pomona College being exposed to this instrumentation. Additionally, each year several
programs bring large numbers of under-represented minority K-12 students and teachers
to Pomona College. We will use this facility in outreach programs to inspire these
students to consider a future in science.

Lay Abstract

Large numbers of our undergraduate students are already experiencing the wonders of
electron microscopy. This facility allows students to study carbon nanotubes,
nanostructures of thin films, chemical sensors, chemical reactions, and crystal and rock
structures formed in a variety of geologic processes. The advantages of this technique
over traditional microscopy are a substantial improvement in both magnification and
depth of focus in the images. Electron microscopes have played a key role in both the
advances in modern electronics, biology, materials science, and the development of
nanotechnology. While our current microscope allows us to look at samples, the EDS
system will allow us to identify the chemical elements in these samples. In other words,
not only will we be able to image the samples, but we will also know what they are made
from. The nanometer pattern generation system converts the electron microscope from a
tool for taking pictures to one that can draw tiny patterns that can be turned into
electronics, sensors, motors, tunnels, optical switches and filters. In this mode an
electron beam is focused to a fine point and scanned by a computer in two dimensions to
write the patterns. The patterns are written in a special polymer resist film that can then
be developed to show the final patterns. These patterns can be transferred from the
polymers to other materials by etching, plating, stamping, and many other techniques.